A Computer Laboratory for Natural Science

This project integrates computer usage throughout the science curriculum with the main emphasis on the laboratory. Computers are used for data acquisition, data processing, and to demonstrate phenomena not easily demonstrated by other means. A telescope, dissecting microscope, and image analysis system give astronomy and biology students an introduction to laboratory image processing techniques. Together the scientific equipment, computer systems/software, and delivery systems provide an effective learning experience and an application of scientific concepts. The grantee provides funds that are an equal match for the NSF award.